Tensor Categories and Geometric Representation Theory

One of the basic ideas in the science and art is the idea of {\em symmetry}. For example
one expects that the best solutions of technical problems are symmetric (an archetypical
example here is the wheel -- highly symmetric shape that is so useful in our everyday
life). On a deeper level it is expected that all the physical laws should be symmetric with
respect to a change of point of view and this appears to be the guiding principle of
many modern physical theories (starting with Einstein's Relativity Theory). It is quite a
nontrivial problem to express the idea of symmetry in mathematical terms; but we
have a great progress in this direction. Actually there are at least three levels of abstraction
in the solution of this problem: groups, Hopf algebras, tensor categories. The first part
of this project is related with highest level of abstraction in this list, that is with tensor
categories. Despite of this high level of abstraction the theory is useful in the applications:
in physics the language of tensor categories is used in theoretical study of phase
transitions and surface phenomena (and this is important if we want to produce more
efficient computers); on the other hand the tensor categories are used in computer
science as a working tool for the constructing of the "quantum computer", a new
conceptual approach to the computer architecture. So one expects that the study of
tensor categories would be useful in the development of modern technologies.
Thus it is suggested to study the tensor categories
focusing on the construction of new interesting examples
and the solution of classification problems.
The second part of the project is devoted to the representation theory. One can think
about representation theory as about the study how a symmetry can be realized in
mathematical equations. Thus for a given symmetry (which is described by group,
Hopf algebra etc) representation theory aims to describe all the ways this symmetry
can show up in mathematical models. In the second part of the proposal it is suggested to
study certain questions of representation theory of groups using insights
from the theory of tensor categories (thus we would like to employ symmetry
for studying symmetry and this is indeed one of the guiding principles of the theory).

More technically, in the first part of the projectit is suggested to find new examples
of fusion (= semisimple tensor) categories by studying fusion categories graded by
finite groups and by constructing new examples of module categories (then dual
categories will provide new examples of tensor categories). The second part
deals with geometric representation theory. An extremely important class of objects of
interest for the representation theory is formed by character sheaves that were
introduced and classified by G.~Lusztig.